Travel Grant: RUI: Engineering of Two-Photon Nonlinearities in Bulk and Artificially Structured Semiconductors

The proposed research will investigate two-photo absorption and the associated self-refraction in various semiconducting materials in bulk and thin film structures with differeing dopants and growth techniques. The PI's will use the techniques and knowledge developed under NSF grant ECS 8310625 to investigate new materials. This NSF sponsored work showed that the two-photon absorption coefficient in undoped bulk semiconductors could be predicted to within 50% knowing only a few material parameters. Questions still remain about the effects of impurities and defects. Current researach has resulted in the development of a predictive model for two-photon absorption in undoped bulk semiconductors and the development of the photo-Hall technique to investigate nonlinear absorption and subsequent self-defocusing. The possibilities of engineering the nonlinearities in semiconductors by intentionally producing defects and adding impurities as well as using thin-film architectures including narrow-band interference filters and multiple-quantum wells will be investigated. The PI's will collaborate with researchers at North Texas State University and Heriot-Watt University, and with materials suppliers such as Hughes Research Laboratories, Texas Instruments, Purdue University and Notre Dame University. This reserach intends to apply experimental techniques and theoretical understanding developed under past NSF sponsorship to perform an extensive study of nonlinear two-photon absorption and associated self-refraction in a wide variety of semiconducting materials and thin-film structures. The results of these studies should have broad applications to such fields as optical bistability, optical limiting and switching, and laser-induced damage to optical materials. Several university and industrial collaborators are supplying samples for this research.